Real Algebraic Structures on Smooth Manifolds

9801726 Mikhalkin Mikhalkin will analyze how algebraic characteristics determine topological properties of real algebraic varieties. The subject was pioneered by Harnack and Hilbert over a hundred years ago; the introduction of modern topological techniques to the subject by Arnold and Rokhlin resulted in substantial development of this theory in dimensions 1 and 2 over the past 3 decades. The investigator will continue the study in these dimensions; of special interest here are curves which arise as visible contours of surfaces. He will also consider the case of dimension 3 in connection with the recent work of Kollar introducing the Minimal Model Program into the subject. In Optics, Mechanics and Robotics, most configuration spaces appear with natural real algebraic structures; e.g., the configuration space of any mechanical linkage arises as the intersection of quadratic hypersurfaces. The visible contours of surfaces appear in computer vision problems. ***